Postdoctoral Fellowship: MSPRF: Multigraded Algebra of Toric Varieties

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Lauren Heller is “Multigraded Algebra of Toric Varieties”. The host institution for the fellowship is the University of Nebraska - Lincoln and the sponsoring scientist is Alexandra Seceleanu.